Automated Student Laboratory for Electronic Engineering Technology Curriculum

This project enhances electronics education at this community college. Students are able to use this institution's automated circuits laboratory stations to: calculate and set circuit parameters for their circuit designs, analyze circuit performance using the computer simulator, and test the hardware version of their design for its real behavior. The equipment that supports this lab, primarily from Hewlett Packard, includes: Measurement Automation Systems, display interfaces and resource managers, graphics printers, function generators, digital multimeters, dual channel digital oscilloscopes, multimeters, power supplies and programmable scanners. This award is being matched by an equal sum from the grantee.